Quantum and Nonlinear Atom Optics

Theoretical investigations of the generation, characterization and manipulation of matter waves are undertaken. In contrast to the photon field, the field of matter waves requires the introduction of new forms of detection and correlation functions to characterize the physics. The program proposed by the PI will search for these generalizations and them apply them to a number of situation of experimental interest.